Faculty Advancement in Mathematics (FAIM)

Three two-week workshops will be held to acquaint undergraduate professors with new curricula ideas and applications in the areas of mathematical modeling, geometry, and statistics. Leaders in each field, both academic and practitioners, will interact with seventy-five nationally drawn participants to enable them to understand new developments in these mathematical fields and to prepare applications-based modular materials suitable for classroom use. Areas to be discussed are problem-solving strategies using combinatorics and graph theory, applications of analysis to biology, and graphical algorithms in the social sciences. In geometry, emphasis will center on tilings, combinatorial geometry, and studies in computational geometry. Statistics will focus on data analysis and graphical techniques as applied to experimental design, quality control, and sociology.